Jellies: The Once and Future Kings -- A Traveling Exhibition

The New England Aquarium proposes to develop a traveling exhibition based on recent research implicating human activities in the worldwide increase in jellies. Humans are changing oceans so that they are becoming more suitable for jellies than for fish. The exhibition is expected to reach 12 million people -- primarily families with school-aged children -- across the nation. No jelly exhibit to date has shown jellies as important indicator species and ecosystem linchpins.

Dissemination will include materials and programs for school and community outreach. A Sea Jelly Activity Kit and a community art/science program will be developed. In each year of the project approximately 100 urban teens will intern in the jelly culturing facility, where they can learn about the science of culturing jellies and present their experiences to the public.